New Approaches to Nonparametric Regression Estimation for Continuous and Discrete Time Series

Masry 9703876 The research is concerned with regression functions estimation in a hybrid setting: the underlying processes are continuous in time, and so is the regression function, but the observations are taken at discrete-times. This is common in many practical situations where the collected data is irregularly spaced as in environmental and oceanographic studies. The instants at which the data is obtained constitute a point process with a FINITE mean sampling rate but nevertheless result in no loss of information. The goal of the research is to identify appropriate non-equally spaced sampling schemes; formulate suitable estimates based on a modified Nadaraya-Watson approach and on the more recent local polynomial fitting approach; and study their convergence properties including asymptotic normality and rates of strong convergence. A fundamental requirement is that the consistency of the regression estimates, as the number of observations tends to infinity, holds for ALL positive values of the mean sampling rate. Results of this type do not hold for conventional equally-spaced data unless the sampling rate is allowed to diverge to infinity. Scientists and engineers collect huge amounts of data in wide range of disciplines including communication systems (e.g., Internet traffic, satellites), econometrics (e.g. stock market), geology (e.g. earthquakes), and environmental science (e.g. pollution levels). While much of the observed data is continuous in time, the processing of the data is carried out by using computers which convert the data to a digital form. The research develops digital processing methodologies (irregular sampling methodologies) which do not lose any information during the conversion process from continuous-time data to discrete-time data. The context of the research is 1) to forecast the future evolution of the phenomena being observed and 2) to filter signals observed in the presence of corrupting noise.